Algorithms and Models for High Performance Computation

This project investigates a number of topics concerned with high performance algorithms, with particular (but not exclusive) emphasis on parallelism. Specific topics include: (1) The design of optimal speed up algorithms from PRAMs. (2) Models of computation that capture critical features of real parallel machines. (3) The design of efficient algorithms in these new and emerging models. (4) Data structures and information representation for algorithms in general, both sequential and parallel.